Mathematical Theories of the Thermistor Problem

The principal investigator will study mathematical models that describe
the combined processes of heat conduction and electrical conduction
in certain semiconductors. Thermal conductivity and electrical conductivity
are assumed to be highly temperature-dependent. Due to the presence of
strong degeneracy and quadratic nonlinearities in the partiual differential
equations that describe these processes, these physical problems lead to
deep and intriguing questions in nonlinear analysis. Part of the mathematical
analysis involves the applications of partial regularity and the local
description of a solution near a singularity. However, solutions in these
processes exhibit rich structures and different structures require different
mathematical approaches.

How to control temperature in microprocessors is a very important issue
in the semiconductor industry. The planned research will use
mathematical models to reveal how the temperature in a semiconductor
depends on the known data. It is expected that the understanding of
these issues can assist engineers and researchers in the design of
future products.